MRI: MicroComputing and Main-Frame Networking Equipment (Physics)

This is a grant within the Minority Research Initiation (MRI) program of the Division of Physics. It will fund the purchase of several microcomputers for undergraduate and faculty research at Hampton University. In particular, the computers will be used as workstations networked to main-frame computers at CEBAF, the electron accelerator under construction at Newport News, Virginia.